The Rhetorics of Electric Power Planning: A Case Study of Planning in Chicago

Studies in Science, Technology and Society supports projects that examine the social, economic, and political contexts that influence the development and use of science and technology. Ethics and Values Studies supports projects that examine the social values and mutual obligations and responsibilities that arise in these interactions. This project examines these issues in the context of the electric power industry, currently undergoing fundamental changes in structure and regulation. It is designed to explore the ways in which electric power planners and policy analysts seek, through their styles of speech and writing (that is, their rhetorical strategies), to influence those changes. It also seeks to discover and explore the ethical dilemmas associated with those strategies, and to discover how planners resolve those dilemmas. The project attempts to accomplish these objectives by conducting a case study of electric power planning in Chicago. Relying heavily on the methods of participant-observation and depth interviews, the project analyzes the rhetorical strategies of eight to ten key planners who are contributing to, supporting, or opposing the City of Chicago's current effort to explore innovative options to remaining on Commonwealth Edison's electric power system. When completed, the project will enhance our understanding of the role that rhetoric plays in planing, particularly with regard to the electric power industry. It will also provide students of rhetoric with a detailed case study of how their research relates to public policy making. And it will provide students of planning ethics with greater insight into how planners interpret and respond to practical ethical dilemmas. This study comes from a well-qualified researcher. Research and dissemination plans are appropriate; institutional support is very good; the budget is modest. The project has important implications for our understanding of how expertise operates in political contexts. Support is highly recommended.